Mathematical Sciences: Minimal K-types and Hecke Algebra Isomorphisms for p-adic Groups

The theory of Lie groups, named in honor of the Norwegian mathematician Sophus Lie, has been one of the major themes in twentieth century mathematics. As the mathematical vehicle for exploiting the symmetries inherent in a system, Lie theory has had a profound impact upon mathematics itself and theoretical physics, especially quantum mechanics and elementary particle physics. A major application of Lie thoery is to algebraic number theory, for which an understanding of the p-adic theory is essential. Professor Moy is possibly the strongest young researcher in this area. His recent work on minimal K-types and Hecke isomorphism provides some of the most important advances in the representation theory of p-adic groups in a long time. Moy plans to continue the development of this theory. His proposed work generalizes the most current results from the real theory to the p-adic case. Professor Moy envisages application to the crucial discrete series of representations.